Project TEAM (Teacher Education at the Museum)

The Buffalo Society of Natural Sciences plans to conduct a 5 year project to train 150 mentor teachers (30 teachers/year) and their principals, who will then train the remaining 1100 elementary teachers in the Buffalo Public School System. The training would include two 5-week summer sessions (in a Magnet school that is physically incorporated into the Buffalo Museum of Science) and 4 in-service workshops during the academic years following each of the summer workshops. This innovative leadership project is a collaborative effort between the Buffalo Society of Natural Sciences (including both education and curatorial/science staff persons) the Buffalo Public Schools, and individuals from local colleges and universities. The setting of the project is enhanced by a Science and Math Magnet School which is housed within the museum, and by the school/museum's location in a largely inner city environment with easy accessibility to minority persons. The project is designed to provide mentor teachers with a strong science background in pedagogy and content over a two-year period of summer and academic-year workshops, and to prepare and support these mentors as they inservice their colleagues. Project staff from the museum, public schools, and the academic community will provide strong support through academic-year workshops, site visits and telecommunications networking. Principals will be appropriately involved, and will work with mentors to develop a science inservice program tailored to meet the needs of their individual schools; as a consequence, virtually all of the 1100 K-6 classroom teachers of science in the Buffalo Public Schools will have been prepared to teach investigative, hands-on science to their students. Non-NSF cost sharing is approximately 27.9% of the amount requested from NSF.